UCSD Science Teacher Institute for Crossover and Science Background Deficient Middle/Junior and Senior High Teachers

This project is a partnership among San Diego County school districts, the University of California-San Diego, and industry to improve the quality of teaching at the middle/junior high school and senior high school levels. Year one will address the needs of participants from the middle/junior high schools. Year two will address the needs of participants from the high school. The target population will include teachers of science courses with background deficiencies in science as well as those with science backgrounds but who lack sufficient training in teaching methodology. Fifty teachers from the San Diego County schools will be selected each year. The summer phase will be a six-week program consisting of intensive subject area seminars, methodology workshops, and some internships in laboratory setting. School year activities will include the initiation of a hot-line to the San Diego County Office of Education, follow-up visits to the participants' schools, and a monthly colloquium.